CISE Research Resources: Infrastructure to Develop a Large Scale Experiment Testbed of Multi-modal Resources

EIA-0130422
Louiqa Raschid
University of Maryland College Park

CISE Research Resources: Infrastructure to Develop a Large Scale Experiment Testbed of Multi-model Resources

The use of the widely distributed collections of structured and unstructured information expressed in multiple languages or modalities provided by the Internet, requires production of scalable, robust algorithms for the discovery of replicated content, determination of delay or access latency of sources, and the confrontation of the inherently dynamic nature of the Internet.

This project's objective is to establish a laboratory testbed providing a controlled environment that captures structural, content, and latency characteristics of the (publicly accessible) Web. This will stimulate collaboration between researchers whose interests range over natural language applications, language independent processing of scanned documents, analysis of video information sources, information retrieval, and wide area applications and resource discovery across heterogeneous servers.

The testbed will support the development and testing of: (1) tools for broad-scale, cross-linguistic analysis and discovery of relevant information across languages and modalities, (2) cost models and access cost catalogs for wide area environments, reflecting the temporal variability in access latency, (3) distributed content based indexing and association of media clips for resource discovery, (4) transcoding and scheduling of multimedia resources for delivery any time and anywhere to disparate clients; from mobile wireless to high speed optical links.